Nuclear Methods in Geology - June 1 - December 31, l989

Nuclear methods of analysis in geology have wide applications in petrogenetic, alteration, age dating, pollution monitoring, and waste disposal. This project is providing hands-on experience for undergraduate faculty in the operation and use of a nuclear reactor, radiation safety, fundamentals of nuclear reactions, obtaining data by nuclear methods, data reduction, and interpretation. The program is using instrumental neutron activation analysis of short to long half- life elements, autoradiography, and fission-track dating. Participants are involved in a five day field trip to various sites in the Tertiary volcanic province of the Pacific northwest and ar being introduced in the field to many problems where the applications of nuclear methods are appropriate. Faculty are returning to their home institutions with three to four projects that include data sets, field samples and photographs, and plans for the use of the material in undergraduate classes in petrology, geochemistry and independent studies. Participants are being informed as to where and how they can continue these projects for their undergraduate classes after the program has ended.